Collaborative Research on the Northeast Water Polynya: WaterMass and Air-Sea-Ice Interaction

This proposal is part of an integrated scientific investigation to study the properties of the Arctic ocean, atmosphere, sea-ice and biology in the Northeast Water (NEW) Polynya, which occurs near northeastern Greenland, in order to gain an integrated understanding of Arctic shelf-slope processes. This element of the NEW program will provide necessary physical observations for description of the dynamical processes contributing to the creation and maintenance of the polynya as well as its water-mass structure. This element of the program will contribute to the biological/chemical, mooring, and modelling efforts within the program.